Thermodynamics, Transport, and Flow of Fluids in Micropores

The behavior of fluids confined between solid surfaces and in micropores is studied in a comprehensive research program consisting of three closely coordinated parts: (1) molecular dynamics, (2) molecular theory and (3) experimentation. The availability of supercomputers allows the simulation of interesting and realistic fluid-solid systems and enables the researchers to handle the complicated nonlinear integral and integrodifferential equations characteristic of modern density functional theories of structure, stress, flow and transport in inhomogeneous fluids. A surface force apparatus is used to measure solvation forces (normal stresses) and squeezing flows of microscopically confined fluids. Pressure drop techniques are used to study Poiseuille flow in uniform microscopes, and a pulsed field gradient spin echo NMR technique is used to study self diffusion in microporous media. A special aspect of the research program is the close coupling and coordination of supercomputer-aided molecular simulation, theory and experimentation. Progress in this research area will enable better design of: wetting and spreading agents; lubricants; stable colloidal dispersions membranes; microporous solids for heterogeneous catalysis and electrochemistry sol-gel ceramics; molecular sieves; and coal gasification processes. The ultimate goal of the project is to provide the understanding and models needed to engineer special purpose materials and processes at a molecular level.